Dynamics of Postural Control During Precision Manual Activity

Dynamics of Postural Control During Precision Manual Activity
Michael Riley (PI) & Kevin Shockley (Co-PI)

Abstract

The control of standing balance is fundamental to other behaviors people
perform, such as the precise hand movements performed by surgeons or
artists. Since standing upright requires placing the body in an unstable
state, and because the neuromuscular system is highly complex and "noisy,"
the body's center of mass constantly fluctuates when a person stands
(termed postural sway). Postural sway is transmitted to the hands and can
thus hinder manual performance (imagine trying to thread a needle while
standing on one foot). The purpose of this proposal is to determine how
postural control is modulated when people perform the precision manual
action of lightly touching a surface with a fingertip.
The research will identify the adaptive postural dynamics associated with
integrating postural control and precision manual actions. Experiments are
planned in which postural stability and the demands of a fingertip
force-production task are varied. The variability and temporal dynamics of
postural sway are expected to be precisely tuned to the demands of the
touching task under conditions in which balance is not threatened, but
threats to postural stability are expected to limit the extent to which
postural control is adapted to the manual task. The research will shed
light on fundamental mechanisms of balance control and will also have
important applications to physical rehabilitation and efforts to develop
fall-prevention programs.